Finite Volume Methods for Hyperbolic Problems

Hyperbolic systems of partial differential equations arise in many
applications where wave propagation or transport phenomena are important.
Often these equations and/or their solutions involve discontinuous
functions, giving difficulties for standard finite-difference approaches
to discretizing the differential equations. In particular, nonlinear wave
propagation problems often give rise to shock waves, discontinuities in
the solution which can arise spontaneously even from smooth initial data.
The goal is then to approximate a weak solution to the underlying integral
conservation law. Often the problem must be solved in a heterogeneous
medium where the material properties vary with space, often discontinously
at sharp material interfaces. This results in discontinuous coefficients
or flux functions in the equations to be solved. This proposal concerns
the further development of multidimensional high-resolution
finite volume methods for solving such problems, the development of
software implementing these methods, and the application of these
methods to particular problems. The P.I. has previously developed
a multidimensional "wave-propagation algorithm" that yields a very
general framework for solving such problems, and has implemented this
method in the CLAWPACK software. These algorithms and the software
will be further developed and brought to bear on a variety of problems.
Some particular applications to be studied include: tsunami propagation
and runup, pyroclastic flows arising from volcanic eruptions, the
simulation of seismic waves, and elastic wave propagation in heterogeneous
media, including shock wave propagation in tissue and bone.

A wide range of practical problems arising in science and engineering are
modeled using "hyperbolic differential equations" and have a very similar
mathematical structure, allowing researchers in applied and computational
mathematics to make contributions that are widely applicable. The goal
of this work is to further develop methods and software for approximating
the solutions to these equations. These methods are implemented in the
CLAWPACK software package written by the P.I. and co-workers, which
is freely available on the web and allows students and researchers
studying a wide range of phenomena to use state of the art methods for
these mathematical problems. This software has been downloaded by more
than 5000 registered users over the past several years and applied to
numerous scientific and engineering problems by the PI, his students, and
other users. Specific practical problems will also be studied, building on
work already performed by the P.I. and students. One project involves
modeling the effects of tsunamis on coastal regions, both to aid in
scientific studies of past tsunamis and as an aid to hazard mitigation
and preparedness. Other geophysical projects involve the study of flows
arising from volcanic eruptions and the propagation of seismic waves in
the earth following an earthquake or in oil exploration. A project with
biomedical applications is the study of shock waves propagating in tissue
and bone, with potential application to the study of "shock wave therapy",
in which ultrasonic shock waves are used to treat a variety of medical
conditions including nonunions (broken bones that fail to heal), plantar
fasciitis, and tendinitis.